Young Scholars Program

The goal of this Young Scholars Program at Northern Kentucky University is to increase the awareness and interest of junior high school and high school students in mathematics, science and engineering as potential career options, by presenting these fields as the tools to solve exciting problems. To provide the necessary opportunities, a two-phase program is proposed for forty 8th, 9th and 10th graders. The first phase is a five week commuter program during the summer of 1988, where activities will focus on research methodology. The academic year workshop will focus on selected topics in science and mathematics. Again, these activities will not only increase participants' skills in math and science, but encourage them to select courses in school that will allow them to pursue careers in science, engineering and mathematics. As always, women and minorities will be encouraged to participate.